Engineering Intracellular Signal Transduction Networks: Life and Death Decisions at the Molecular Level

The ultimate goal is to build a mathematical model that captures the cross-talk between cell proliferation and cell death signaling pathways. The focus of the proposed work is on the Ras/Raf and P13K/Akt pathways. Preliminary data will be gathered that investigates and illustrates the cross-talk between these pathways. With an improved understanding and a mathematical description in-hand, an improved base for optimizing cell culture or developing pharmaceutical compounds can be envisioned.